Collaborative Research: RI: Medium: Informed, Fair, Efficient, and Incentive-Aware Group Decision Making

In our fast-paced and increasingly online world making informed decisions is both more important and harder than ever. In response, this project will create a new research direction called informed group decision making. This new research area extends current models and mechanisms of group decision making by explicitly accounting for the role that information has on agents' final decisions. The final goal is to develop new models and methods that can be used to incentivize individuals to ensure group decisions achieve a desired outcome.

This research consists of three dimensions for foundational research and one direction for bridging theory and practice. Dimension 1: Representation aims to develop novel models for combining agents' subjective and objective preferences, information, and responses to queries. Dimension 2: Aggregation aims to introduce novel criteria for informed group decision making, and design novel mechanisms to achieve them. Dimension 3: Incentives aims to address agents' incentives in informed group decision making by proposing novel equilibrium concepts, conducting analysis of agents' behavior, and designing novel incentive-aware mechanisms. To bridge theory and practice, the models, algorithms, and mechanisms developed in this project will be deployed, validated, and refined at the open-source Online Preference Reporting and Aggregation (OPRA) system via various educational and outreach activities.